U.S. National Committee for SCOPE

This action funds the payment of international dues for the U.S. National Committee for SCOPE, Scientific Committee on Problems of the Environment, an international scientific organization charged with advancing knowledge of the interactions between humans and the environment. Forty countries are members of SCOPE, each with a national committee that operates through the country's national academy of sciences. SCOPE was founded as, and continues to be, an important forum for identification of and recommendations for international scientific discussions of environmental situations affecting humans.